PostDoctoral Research Fellowship

This award is made as part of the FY 2021 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Colin McSwiggen is "Orbital Matrix Integrals: Bridging Combinatorics and Analysis." The host institution for the fellowship is New York University, and the sponsoring scientist is Sylvia Serfaty.